Coding Theory with Methods from Algebraic Geometry and Number Theory

In previous work, the PI introduced the study of algebraic geometric
codes over local Artinian rings, and the first main goal of this
project is to further the understanding of these objects. In
particular, the investigator studies the minimum squared Euclidean
weight of these codes. This quantity is closely related to an
exponential sum, where the sum is over points on the curve (defined
over the ring) used in the construction of the code. Thus, the
question of the error-correcting capability of these codes is reduced
to a question in number theory. Results have already been obtained by
the investigator and a colleague in the two special cases where the
curve involved is either the Serre-Tate canonical lift of an ordinary
elliptic curve or a plane curve with a single point at infinity. The
PI is continuing this work with the goal of studying the squared
Euclidean weight and associated exponential sum for more general
curves. Additionally, the PI is working towards the development of a
decoding algorithm for these codes, with respect to the squared
Euclidean weight. The second main goal of the project involves the
search for a structure theory of codes, a topic which has been around
almost from the beginning of the study of codes. This search was
largely unsuccessful until the introduction of so-called critical
indecomposable codes in a recent paper of Assmus. The PI is developing
this theory further and demonstrating its power by revisiting the
classification of self-dual codes.

Whenever data is transmitted across a channel, errors are bound to
occur. The goal of coding theory is to find efficient ways of adding
redundancy so that errors can be detected, or even corrected. Two
basic questions must be asked about every code: "What is the
error-correcting capability of this code?" and "If an error occurs in
transmission while using this code, is there an efficient way of
recovering the original codeword?" In the case that code is defined
over the ring of integers modulo a power of a prime, the
error-correcting capability of the code is measured in terms of the
code's minimum squared Euclidean weight and the investigator studies
this property in the case of algebraic geometric codes. The problem
of recovering the original codeword is equivalent to finding a
decoding algorithm for the code, which has important connections to
cryptography also. Finally, a structure theory for codes allows the
study of codes from a systematic point of view. In particular,
self-dual codes often achieve a good balance between error-correcting
capability and efficiency, and a structure theory allows a new attack
for the study of these objects.